One Year Immersion in the Loyola Chemistry Department

This one-year immersion into the chemistry department at Loyola University New Orleans will provide the PI with the opportunity to develop her skills and knowledge in chemistry and to expand her research in interdisciplinary directions. In addition, the PI will expand on-going teaching collaborations between the mathematics and chemistry departments. The objective of the initial research project is to develop a fitting algorithm to allow for the determination of isotopic abundances in mixed gasses using Fourier Transform infrared (FTIR) spectroscopy. The algorithm will fit theoretical spectra developed by the National Institute of Standards and Technology (NIST) to FTIR spectra to extract isotopic abundances. The successful completion of this project will provide the scientific community with an inexpensive, easily attainable mechanism for determining relative abundance of isotopes. In addition, this project will expand the opportunities of undergraduate students by involving them in the research efforts. The PI will also collaboratively develop two courses that will be of interest to science and mathematics majors using real data and examples that come directly from laboratory experiments.